Collaborative Research: GCR: Accelerated Discovery of Synthetic Biological Materials

This project aims to develop a pathway to transform the economy from petroleum derived plastics to bioplastics made of synthetic biological materials (SBM) manufactured by bacteria and derived from sustainable sources. A convergent team comprised of experts from synthetic biology, biotechnology, machine learning, social sciences, materials science, and mechanics will work on developing commercially viable, high-performance plastic fibers made of SBMs with the goal of building a pipeline that will both produce sustainable high-performance SBMs of the future and help train a diverse workforce for the future.

The research activities focus on addressing key challenges by developing: (1) machine-learning tools to explore potential DNA sequences that can be programmed into bacteria for SBM biosynthesis, reducing the size the design and search space; (2) a transformative discovery pipeline for rapid identification of high-performance SBMs by integrating machine learning tools with first-principle simulations and experimentation that have varying cost and fidelity; and (3) an original economics and sociological framework linked to techno-economic, life-cycle, and supply-chain models to formulate strategies to steer SBMs to market adoption.